CAREER: Dexterous Aerial Manipulation in the Wild via Physics-infused Intelligence

This Faculty Early Career Development Program (CAREER) award will support research to advance dexterous manipulation by aerial robots in real-world environments to perform tasks, such as close-contact inspection of an inaccessible structure, toggling a switch at an elevated location, or mounting a sensor on a tall radio tower. Existing aerial manipulators can perform inspection, grasping, and assembly at height; however, these systems have been primarily explored in controlled lab settings and rarely operated in the open, especially for tasks that require delicate contact or high precision. Achieving high precision is challenging due to robot floatation in air, where the supporting base and manipulator arm dynamics are coupled and significantly influenced by wind disturbances, degraded perception or awareness, and strict limits on payload and applied forces. This research aims to develop new methods to enable precise aerial manipulation under these adverse circumstances while maintaining safety. The outcome will unlock applications that are currently impractical or unsafe, including infrastructure contact inspection and maintenance, precision agriculture, and scientific exploration in remote or hazardous environment. This project will also integrate education and outreach with research to train a future robotics workforce through immersive research-integrated learning modules, capstone projects on enhanced autonomy, and STEM outreach to inspire K-12 students.

This research will advance real-world dexterous aerial manipulation by developing a physics-infused intelligence framework that tightly integrates physical modeling, perception, planning, and control. The framework will enable aerial manipulators to achieve stable contact inspection under coupled contact–aerodynamic disturbances, precise manipulation despite sensing and state-estimation errors, and safe load-bearing manipulation that requires application of force and torque. The project has three research thrusts: (1) Developing a complex dynamics model that captures the strong contact–aerodynamic interactions through a unified representation to enable stable contact with desired force and motion during inspection; (2) Co-optimizing perception and control in an end-to-end differentiable framework with infused physics while accounting for sensing and estimation errors to improve precision; (3) Incorporating wrench space awareness into trajectory planning and control to ensure safe, accurate force application. These advances will be validated on real-world tasks with increasing complexity, including contact inspection, toggling a switch on a tall tower, and mounting sensors at height.